Exploratory Investigation to Determine Individual Stresses Thermographically

The purpose of the proposed research is to extend the capability of thermography to analyze individual stresses from the measured data. Thermography is infrared recording of small temperature changes that accompany stress changes in a solid. The approach is non-contacting, sensitive and expedient and has many advantages over prevailing techniques used for stress analysis. However, at present thermography is only qualitative and provides informaticn on the sum of principal stresses and not the individual stresses. In the proposed research a combination of analytical and computational techniques will be explored to separate the stress components. The research is fundamental and exploratory, but its successful completion will have a significant practical application in non-destructive stress analysis.